Mathematical Sciences: 1991-92-93 Symposia on Some Mathematical Questions in Biology

The 1991 symposium will be the twenty-fourth in an annual series. It will be held in San Antonio, Texas in August, and its theme is Theoretical Approaches for Predicting Spatial Effects in Ecological Systems. Topics included are the use of diffusion based models to predict the movement and distribution of animal populations, the use of renormalization theory to develop scale- independent spatial models, non-linear Markov models for simulating landscape changes, the development and application of spatial ecosystem models for estimating long-term ecological effects, the effect of economic policies on the spatial patterns of land-use, and the use of percolation theory to examine the effects of spatial heterogeneity. The overall goal of the symposium is to expose biologists to recent theoretical work by mathematicians, and to expose mathematicians to some of the key problems and constraints faced by ecologists in the analysis and simulation of ecological systems.